Parallel I/O for 3D Volume Visualization

This project is applying parallel I/O technology to reduce I/O delay in volume visualization. Volume images that arise from such applications as computer tomography and 3D ultrasound are too large to fit within random access frame buffers. As a result, disk I/O is in the critical path for volume rendering. This project is exploring the use of a new parallel volume rendering technique that traverses 3D data sets in an order that eliminates I/O conflicts in a parallel disk array. Consequently, the entire bandwidth of the disk array is available to the rendering application. In this project, a high performance volume visualization server using this idea is being designed, implemented with off-the-shelf components, and evaluated. A supplement supporting Research Experiences for Undergraduates will permit advanced undergraduate students to contribute to the project by implementing and measuring I/O intensive applications. JUSTIFICATION